A NISS/ASA Writing Workshop for New Researchers

The American Statistical Association and the National Institute for Statistical Science propose to run a workshop to help junior researchers write better journal articles and grant proposals. Journal editors will work individually with the participants to improve the quality of their publications.